Electronic Structure Workshop (ES23)

This award supports participation of students and speakers at the 35th Annual Workshop on Recent Developments in Electronic Structure Theory, which will be held at the University of California, Merced in June 2023. This will be an in-person meeting with approximately 150 participants including graduate students, postdoctoral fellows, and senior researchers from colleges, universities, and laboratories around the world. The workshop will facilitate the exchange of ideas between junior and senior researchers in electronic structure theory and serve as an opportunity for creating new collaborations. The workshop will focus on the latest developments in electronic structure theory and computational materials science. The simulation techniques covered by the workshop are used across a variety of fields including physics, chemistry, and materials science, both in academia and in industry.